Science Management for the Western Arctic Shelf-Basin Interactions (SBI) Project Office

ABSTRACT
OPP-9815241
GREBMEIER, JACQUELINE
UNIVERSITY OF TENNESSEE

This project will manage a project office for the Shelf-Basin Interactions (SBI) project to be conducted in the Beaufort and Chukchi Seas of the Arctic Ocean. The project office will facilitate meetings of the Executive Committee and funded investigators, coordinate the compilation of an Implementation Plan for the Phase 2 field program, provide information about the project as it develops, and facilitate the publication of data summaries of completed projects. The SBI Project Office is a critical activity for coordinating results from contributing investigators and international projects with complimentary goals, planning activities for the field work phase of the project, and representing SBI at meetings with logistics providers. Annual meetings of the participating investigators and investigators in other arctic oceanographic research programs will be conducted.